Dynamic Power Management of Circuits and Systems

Portable and high-performance electronic systems need to be designed with
low-power consumption criteria. Dynamic power management (DPM) is a means
of controlling power consumption levels in portable and high-performance
electronic systems. DPM monitors idleness of the system's components and
sets them in appropriate states characterized by performance, power and
service levels. The project addresses developing design technologies to
support DPM. There are four major tasks: 1) Modeling digital systems in a
general and abstract way, to capture the power-consumption, performance and
service levels, 2) Synthesis of optimal control policies for power
management. 3) Implementation of policies, including their embedding in
systems compliant with existing standards (e.g., ACPI), 4) Experimentation
with DPM policies as applied to electronic portable systems to evaluate the
effectiveness of dynamic power management strategies. CAD tools for
designing power managers are being developed.